Mathematical Sciences: Southern Wisconsin Logic Colloquium

9413458 Lempp The Southern Wisconsin Logic Colloquium, now in its fifth year, continues to be one of the largest regional logic seminars in the country, meeting every other week for one or two talks and attracting an average of twenty or thirty faculty and graduate students from the University of Wisconsin-Madison, Marquette University (Milwaukee), the University of Wisconsin-Parkside (Kenosha), and the University of Wisconsin Center-Rock County (Janesville). Talks represent the whole spectrum of logic, including all areas of mathematical logic and logic applied in computer science, linguistics, and industry. ***